Mathematical Sciences: Extra-Variation Models for Cross- Classified Data

The research entails methods of modelling extra-variation in complex survey data. Approaches include complete probability distributions with applications to unequal cluster sizes and longitudinal data. Overall, the intention is to establish models which are applicable to national surveys such as the `High School and Beyond' and `National Crime Victimization Survey' projects.